State Mathematics Leaders + State Policy Makers = Effective Restructuring of Mathematics Education

The Education Commission of the States (ECS), with the assistance of the Mathematical Sciences Education Board (MSEB), and the Association of State Supervisors of Mathematics (ASSM) plans to link the major reform efforts of the mathematics community with state-level policy makers. This two-year project will increase the effectiveness of mathematics education reform by preparing mathematics leaders to participate in state education policy making, translating proposed reforms into appropriate state policies and actions, and linking key mathematics educators with networks of state-level policy makers. Although the focus is on mathematics education, the infra-structure will be extended to science education during the course of the project. The implementation plan includes components on public awareness, data on education policies and reform efforts by state, enhancement of education leadership activities, networking, and technical assistance to the states.